A Training Program in High Performance Computing for the Physical Sciences

The theme of our program is particle simulation. In order to solve physical problems, we will include: The computer science, applied math and physical science necessary to perform state-of-the-art simulations on massively parallel computers. The creation of tools to use parallel computers to drive visualization engines. Integration of simulation with experimentation. For large experimental projects, simulations are key to their planning and interpretation. By concentrating on a single computational theme, we will build a cohesive program spanning several departments. The training program will be jointly administered by Astronomy, Chemistry and Computer Science. Our program has the following key features: It is a cohesive multidisciplinary program with a formal mechanism of joint supervision of students between departments. We will train scientists and engineers in the use of high performance computers for simulation, analysis and visualization. We have arranged summer internships at government labs and in industry. We propose a specific program of action to improve the number of women and minorities in our program until it reflects the diversity of the US population.